Purchase of an X-ray Diffractometer

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Delaware will acquire a X-ray diffractometer with CCD detector for small molecule diffractometry. This equipment will enhance research in a number of areas including studies of a)polymorphs and superlattices; b) coordination and bioinorganic chemistry with sulfur ligands; c) paramagnetic chromium alkyl complexes; d) bioinorganic copper and heme-copper dioxygen chemistry; e) helicenes as potential asymmetric catalysts; f) molecular shaped directed crystal engineering; and g) microporous aluminosilicate materials: structure and formation mechanism.

The X-ray diffractometer allows accurate and precise measurements of the full three dimensional structure of a molecule, including bond distances and angles, and it provides accurate information about the spatial arrangement of the molecule relative to the neighboring molecules. These studies will have an impact in a number of areas, including the preparation of more efficient catalysts, materials chemistry and biochemistry.